Stalking Cascadia Episodic Tremor and Slip with Enhanced GPS and Seismic Arrays

0542226
Creager

Megathrust earthquakes, with similarities to the December 2004
earthquake in Sumatra, are thought to occur along the Cascadia subduction zone with
average repeat intervals of roughly 500 years. These earthquakes accommodate the relative
motion between the Juan de Fuca and North American plates along a fault that is mostly off
shore, but may extend onshore in places such as the Olympic Peninsula. It has been
recently discovered that much, if not all, of the slip along the portion of the plate
boundary just down dip (east) of the megathrust earthquake zone is accommodated by
episodic tremor and slip (ETS) events that occur every 14 months in the regions from the
Olympic Peninsula north into Vancouver Island. We propose to deploy arrays of seismometers and Global Positioning System instrumentation in order to record and better characterize the next ETS event which is expected to occur sometime in August, September or October, 2005.